Problems on Homogeneous Compacta

Professors Arhangelskii and Eisworth will focus on open problems regarding
the interaction between compactness and topological homogeneity. The project
is loosely organized around a famous question of van Douwen: Does there
exist a homogeneous compactum containing a family of disjoint open sets of
size greater than the continuum?
Prior work has yielded a meager supply of techniques for building
homogeneous compacta, all of which have fallen short of answering van
Douwen's question. Similarly, research over the past twenty years has
provided a few techniques for proving that a space is not homogeneous, but
still general methods are lacking. Work of Arhangelskii has started to
illuminate the connections between various counterexamples, and the project
uses this work as a springboard toward attacking more fundamental questions.

General Topology is one of the great unifiers of modern mathematics, and its
language and ideas are ubiquitous throughout the mathematical canon. The
subject is concerned with finding general ideas and structures that are
common to diverse areas of mathematics, and two of the most fundamental such
general ideas are homogeneity and compactness. Loosely speaking, a
structure is homogeneous if it "looks the same everywhere", while
compactness is a property capturing "completeness" properties of the unit
interval [0,1]. The interaction between these two topics is not
well-understood --- known results have demonstrated that the relationship
is complex, but the subject resisted the development of general techniques
for constructing examples and counterexamples. Recent work of Arhangelskii
has begun to shed light on some of these problems, and the project
integrates this together with Eisworth's work on applications of set theory
in topology.